Photoisomerization of Trans-Stilbene Adsorbed on Dielectric Surfaces

This research project, at an undergraduate institution, addresses the photoisomerization of trans-stilbene adsorbed on single crystal alumina surfaces. Support from the Analytical and Surface Chemistry Program will enable the characterization of adsorbed molecules using temperature programmed desorption and polarized UV- VIS spectroscopy. The effects of inert Xenon spacer layers on the arc lamp induced photoisomerization will be examined, as will variables such as adsorbate coverage, excitation wavelength, and surface temperature. The detailed mechanism of the surface mediated photoisomerization will be explored. Photoinduced chemistry on surfaces is an expanding area of research due to interest in photocatalysis and the use of light for electronic materials processing. The work supported here addresses basic aspects of this general area, by considering the simple model system of light induced isomerization. By examining a system which has been well studied in the gas phase and in solution, an understanding of the surface mediated process should emerge.